SGER: Analysis of Stressed Interconnected Power Networks

The proposed research deals with the analysis of interconnected power networks when subjected to large disturbances such as the loss of a generating unit. The vast majority of analytical work on power system dynamics deals with system behavior in response to small disturbances. In such cases linearized analysis is appropriate. For large disturbances, nonlinear interactions can play an important role. The approach used in this research extends energy-based methods to account for modal interactions.